Scanning Probe Microscopy Investigations of Chemically Enhanced Metal Nucleation

This award is the starter grant increment of Dr. McCarley's Postdoctoral Fellowship in Chemistry. Scanning tunneling (STM) and atomic force (ATM) microscopy studies will be carried out on thin metal films formed upon organic monolayers containing pendant metal binding sites. Surface diffusion of adatoms should be controllable by varying the tail group thus allowing better control over metal film properties. ATM and STM will be used to monitor the morphology of metals formed on these modified surfaces. Metal films produced by vacuum evaporation will be investigated in order to note differences in nucleation events. %%% This research will study methods which can lead to the preparation of thin metal films. These materials are of considerable commercial importance to the electronics industry.